Sensorimotor Integration in Spinal Circuits: In Vitro and In Vivo Studies

Lay Abstract PI: Currie, Scott Proposal Number: IBN-9723973 Coordinated movements are characterized by precise temporal sequences of muscle activation, referred to as "motor patterns." These motor pattern sequences are produced by networks of neurons (nerve cells), called "central pattern generators" (CPGs) in the central nervous system. This project examines the neuronal mechanisms that are utilized by a spinal cord CPG network to generate rhythmic and coordinated movements of the hindlimb. The excitatory and inhibitory chemical transmitters utilized within this CPG will be investigated, as well as the intrinsic cellular properties of CPG neurons. These experiments permit the investigation of cellular mechanisms contributing to the construction of complex, coordinated limb movements. The mechanisms revealed will provide fundamental information about vertebrate spinal cord function, and may eventually contribute to the understanding of human movement disorders.